MSPA-MCS: Collaborative Research: Computer Graphics and Visualization Using Conformal Geometry

The proposed research is to apply conformal surface theory to
various geometry representations to compute conformal
structures. Using computed conformal structures, new geometry
representation and analysis tools can be developed, which will pave
the road for advances in multiple fronts of science and
engineering. The work proposed herein will especially explore these
potentials in computer graphics and visualization. Building up
conformal structures recasts many three dimensional (3D) geometric
problems into two dimensions (2D) and leads to efficient approaches
for a number of fundamental geometric problems. These approaches can
then immediately benefit a wide range of applications, such as
surface classification, surface matching and shape analysis,
geometric modeling, simulation, graphics rendering and
visualization. Performing conformal parameterization requires
solving large least squares problems. To further push the
application of the conformal structure to interactive or time
critical operations, the research team will investigate novel
iterative methods for least-squares problems based on sparse QR and
incomplete sparse QR algorithms.

Various scientific and engineering applications concern about key
operations such as modeling, design, analysis, simulation, and
graphics rendering. All these operations are built on top a
foundation of geometry representation. In this project, scientists
aim to revolutionize this foundation by introducing a conformal
structure uniquely characterizing geometry surfaces. Many laws of
physics are governed by conformal structures. For example, heat
diffusion and electromagnetic field distribution on surfaces,
tension in soap bubbles and parts of string theory in theoretical
physics are determined by conformal surface structures. Encouraged
by the existing success, the scientists strive to explore and unveil
the potentials of conformal structures for computer graphics,
geometric modeling and much of scientific computing. To illustrate
this potential, consider one aspect of conformal structures, namely
the canonical flattening of a surface into a plane, resulting in an
image like representation of seemingly complicated three dimensional
geometry. Overall, the tools developed in this project can help
boost the development of effective techniques to deal with the
emerging problems related to scientific simulation, data
exploration, and identity matching or shape analysis for
surveillance and biological discovery.